U.S.-New Zealand Cooperative Research: Depositional Models of Coals in the Buller Coalfield, New Zealand

This award will enable collaborative research between Dr. Romeo Flores of the U.S. Geological Survey, Denver and Mr. Simon Nathan of the New Zealand Geological Survey. They will collect and describe stratigraphic and sedimentologic data from the Buller Coalfield in the northwest South Island, New Zealand. The investigations will emphasize study of the facies of the coals and associated sedimentary rocks with the intent of constructing a depositional model. This model will then be used to evaluate the stratigraphic architecture and areal distribution, as well as the thickness, lateral variation, geometry, and quality of the coal deposits. Construction of depositional models of ancient coal measures is useful in predicting stratigraphic architecture, lateral and vertical distribution, thickness, geometry and quality of associated coal deposits. Because the physical and chemical properties of coal are directly related to environmental settings, such predictive models can serve as guides to exploration and development of economic coals. Simon Nathan's working knowledge of the Buller Coalfield will be complemented by Romeo Flores' expertise in developing coal basin facies models. Knowledge gained in this project, in addition to directly impacting methods of exploration and mining of coal deposits in New Zealand, will add to our general understanding of the nature of world coal resources and their distribution and origin.